NSF Minority Postdoctoral Research Fellowship for FY 1996

This fellowship supports research and training in the area of neurobiology. The project is entitled The Isolation of MASH1 Expressing Cells from Transgenic Mice. The mammalian achaete-scute homologous gene 1 (MASH1) is a neuron-specific transcription factor that identifies neural precursors in multiple lineages at early stages of development and, in some cases, is required for development to proceed. The aims are to isolate, characterize, and compare MASH1 expressing precursors using MASH1/lacZ expressing transgenic mice.